Student Travel for Magnetism Summer School to attend the 2011 INternational IEEE Nagentics Society Summer School being held in New Orleans on May 22-28, 2011.

Funds are requested to provide travel and subsistence support for 12 U.S. graduates
students to attend the 2011 International IEEE Magnetics Society Summer School in New
Orleans. The International Magnetism Summer School is the IEEE Magnetics Society’s main
outreach effort to promote education in the field of magnetism and attract more young scientists
to choose a research career in magnetism and related areas. The one-week Magnetism Summer
School is designed for graduate students studying magnetism and related areas. It will consist of
lectures by international experts and will include poster presentations by participating graduate
students. The program will cover fundamentals and advanced topics in magnetism. The summer
school is a unique opportunity for young scientists to meet leaders in their field in a relaxed and
collegial atmosphere and to begin establishing a network of colleagues in the research
community.
The Magnetics Society has allocated $106,000 which will be used primarily to provide
with free room and board and reimburse for most of the travel expenses for 65 students from all
over the world including the United States. The funds requested from NSF will allow additional
U.S. graduate students to attend the Summer School and interact with peers internationally.
Intellectual Merit
The Summer School provides a forum for exchange of information in the field of
magnetics research. In addition to formal lectures, each participating student is required to
present a poster about their current research. These topics are discussed amongst the students and
lecturers during poster sessions.
Broader Impact
The broader impact of the Summer School lies in the education of young scientists and
researchers in a fast-moving and economically important field. Participants will learn both
fundamental as well as advanced topics through lectures delivered by internationally-renowned
experts. In addition, there is a degree of cultural education, teaching young scientists to interact
with and respect their colleagues from other countries. The students will be co-housed with peers
from different nationalities fostering interaction and cultural exchange.
The organizers of the Summer School particularly encourage women and
underrepresented minorities to apply. The program committee also strives for diversity in the
lecturers selected for the summer school to provide role models for female and minority students.